Document-Based Decision Support Systems: A Needs Assessment

This is a planning grant award under the Research Opportunities for Women program. Under this award the PI will conduct pilot studies on designing document based decision support systems for managerial decision making. It is expected that this planning effort will facilitate the development by the PI of a research program in the emerging area of intelligent organizations.